Case Studies of the Appropriation of Advanced Technology into a School: Cultures, Classroom Practice, Technology andLearning

This work aims at producing a series of case studies of the appropriation of advanced technology into the everyday classroom practices of teachers. We will follow a collection of teachers-- who range from technology-sophisticated and professionally innovative, to completely computer-naive -- as they learn about and seek to incorporate a flexible, advanced technology, the Boxer system, into their day-to-day teaching. The case studies will be interpretive and synthetic, organized around themes that emerge as important in the practice of these teachers and in the processes of change. Each study will involve a "stratified analysis" including: teachers' values and learning goals, the repeatable patterns they use in classrooms (activity structures), the skills both teachers and students need to reproduce such patterns, and the kind of learning that results. The forms of these case studies will be: (1) extended narrative analysis charting facilitory patterns and critical barriers; and (2) richly annotated video tapes of classroom practice. We will incorporate student teachers as apprentice researches in studying effective new forms of instruction based on the availability of advanced technology.